RUI: Competition Kinetics of Peroxidation with Quantitative NMR Spectroscopy

In this RUI project, Professors Hubert Muchalski and Viswanathan V Krishnan of the Department of Chemistry and Biochemistry at California State University, Fresno, are developing a new approach for studying the mechanism of peroxidation, the major chemical process responsible for the degradation of hydrocarbon-rich petroleum products, foods, biomolecules, and materials. The goal of this research is to leverage fluorine nuclear magnetic resonance spectroscopy to develop a new analytical method for measuring peroxidation rates, a key step in developing inhibitors, also known as antioxidants. Because the project lies at the interface of organic, physical, and analytical chemistry, the research is well suited as a platform for the training and education of students in chemistry.

Peroxidation (or autooxidation) is a process in which organic molecules containing weak C–H bonds undergo a radical chain reaction with molecular oxygen. The peroxyl radical clock methodology has emerged as a practical approach for kinetic studies of peroxidation and for measuring inhibition rates of radical-trapping antioxidants. This RUI project will explore the qualitative and quantitative capabilities of 19F NMR spectroscopy to develop an allylbenzene-type peroxyl radical clock assay, investigating the effects of solvent and temperature on its parameters—the oxygen partition coefficient and the rate of beta-fragmentation. The team will also develop a 19F NMR method for direct (real-time) observation, identification, and quantification of peroxidation markers, which are not currently possible with chromatography-based analytical techniques. These research aims will serve as a vehicle for incorporating quantitative heteronuclear NMR spectroscopy into the undergraduate curriculum by developing new laboratory experiments and educational modules.